New Intermetallics: from Semiconductors to Semimetals

PART 1: NON-TECHNICAL SUMMARY
This project focuses on discovering and developing new materials to address future energy and technology challenges. Researchers at the University of California Davis create and study previously unexplored materials to better understand how they conduct heat, electricity, and magnetism. With support from the Solid State and Material Chemistry Program and the Electronic and Photonic Materials Program, both in NSF’s Materials Section A, the researchers develop materials that could more efficiently convert waste heat into useful energy, while also exploring magnetic materials that could support emerging technologies such as advanced electronics, spintronics, and quantum computing. By combining material design, laboratory testing, and theoretical analysis, the project investigates relationships between a material’s structure and its physical properties, helping guide the development of next-generation technologies. The project also provides strong educational and training opportunities for students. Undergraduate and graduate students have the opportunity to gain hands-on experience in scientific research, materials synthesis, and laboratory techniques while learning how to apply the scientific method to real-world problems. Students build communication and professional skills through workshops, mentoring, and participation in scientific conferences. Research results, which are shared broadly through presentations and publications, help expand scientific knowledge and inspire future discoveries in energy and electronic materials.

PART 2: TECHNICAL SUMMARY
With support from the Solid State and Material Chemistry Program and the Electronic and Photonic Materials Program, both in NSF’s Materials Section A, this project develops new intermetallic compounds created through flux and direct synthesis methods and investigates their properties to discover innovative thermoelectric, magnetic, and electronic materials. Promising compounds undergo further refinement to improve their thermoelectric performance and explore their magnetic characteristics, aimed at inspiring new research directions for the scientific community. The goals include investigating intermetallic phases for efficient thermoelectric energy conversion and synthesizing new, understudied compounds with potential applications in energy conversion. Magnetic ions are incorporated into these materials, expanding the design space for materials with enhanced magnetic control, which is essential for applications in spintronics, quantum computing, and advanced electronics. A comprehensive set of physical characterization techniques is employed, including single-crystal and powder X-ray diffraction, pair distribution function analysis, electron microprobe analysis, electrical and transport measurements, magnetic assessments, and theoretical studies. The structure and phase composition are correlated with electronic, magnetic, and thermal transport behaviors. This research influences future energy technology and applications in spintronics, quantum computing, and advanced electronics. Students gain hands-on laboratory experience and learn to apply the scientific method. Scientific and social skills are also advanced through workshops, symposiums, and personalized mentoring. Additionally, the principal investigator develops course-base undergraduate research experience (CURE) program focused on the synthesis and structure of solid-state materials.